Acquisition of a 600 MHZ NMR Spectrometer

A new, state-of-the-art 600 MHz NMR spectrometer and an upgrade for an existing 500 MHz spectrometer is requested for shared use by six major users or major user groups at the Department of Biochemistry at Tufts University School of Medicine and the Department of Medicine at The New England Medical Center. The new instrument and the upgrade will be incorporated into the existing biological NMR facility at Tufts University School of Medicine and will be located in the Department of Biochemistry. The major user groups are currently working on eleven NIH or NSF sponsored projects that require modern NMR instrumentation. The new instrument and the upgrade are therefore needed for application in a wide range of basic biological and biomedical research. The projects include: (i) Structural analysis of the domain from SV40 T antigen that bind to the origin DNA replication, including structure determination of the protein origin DNA complex. (ii) Structure and mechanism studies of serine proteinases. This includes work on the type A hepatitis virus 3C proteinase and the glutamic acid specific proteinase from S. griseus. (iii) Development of improved NMR sensitivity through electron-nuclear cross polarization. (iv) Structural analysis and characterization of synthetic crosslinkers of T cell surface receptors. (v) Structural analysis of papillomavirus E2 protein and its complex with DNA. (vi) Structural analysis of human papillomavirus inhibitor proteins. (vii) Structural analysis of SH2 domains and other signal transducing elements. (viii) Structural analysis of blood coagulation proteins and their interaction with phospholipids. (ix) Structural analysis of cellular adhesion domains. (x) Structural analysis of the extracellular domain of the thrombin receptor. (xi) Structural analysis of an anti-DNA antibody.